Dynamics on Two-Dimensional Surfaces

This is a proposal to investigate aspects of low dimensional dynamical
systems. The most important long term project is to better
understand a topological description of C^r generic area preserving
diffeomorphisms of surfaces where r > 1. In addition the proposer
hopes to investigate the action of more general groups than the integers
or the reals on surfaces, and in particular area preserving actions.

Professor Franks will continue his investigation of the
dynamics of surface maps. The study of such transformations,
especially area preserving ones, has a long history going back to
Poincare and G. D. Birkhoff. There are numerous applications of
results in this area to classical mechanics as well as more modern
chaotic dynamics. The proposed research will address questions
concerning the existence of periodic behavior in area preserving
two-dimensional discrete dynamical systems and a topological
description of the dynamics of such systems.